Mid-American Young Scholars in Science and Engineering

This project will provide a summer residential enrichment experience for thirty gifted and high potential high school juniors in the central part of the United States. The four-week project has three components: (1) a two week workshop concentrating on career exploration, science and engineering ethics, and research methodology and engineering design; (2) a one week engineering or science research project involvement; and (3) one week of "shadowing" a scientist or engineer in industry. The workshop component will use a variety of instructional methods, including case studies and problem solving sessions. During the research component, students will apply what they learned in the workshop to a research setting as part of a research team. Students will complement the career exploration portion of the workshop with their industrial shadowing component. Both the research and shadowing experiences will emphasize the importance of ethics in science and engineering. Academic year follow-up activities include monthly activities to be completed by students in their schools, and two group meetings at WSU. Minority and women students will be recruited for this project though existing high school minority and gifted student programs offered by the College of Engineering.